Equipment: MRI: Track 1 Acquisition of a PacBio Revio System

An award is made to Texas Tech University to acquire the Pacific Biosciences Revio system, a state-of-the-art long-read sequencer, for research across multiple disciplines. This advanced technology will significantly benefit researchers at Texas Tech University, Texas Tech Health Sciences Center, the USDA Stress Laboratory, and national and international collaborators. The Revio system's high throughput and flexibility will enhance genome structure and function studies, plant-microbe interactions, plant sex chromosome evolution, transposable elements, biodiversity, climate change, and agricultural improvement. This acquisition will also provide invaluable training opportunities for faculty, post-doctoral researchers, and students, promoting educational and professional development. Furthermore, the project will contribute to broader societal benefits, such as environmental protection, improved agricultural practices, and increased scientific literacy through outreach activities.

The intellectual merits of this project lie in its potential to advance scientific knowledge in several key areas. By leveraging the capabilities of the Revio system, researchers will explore the complexities of genome structure and function, shedding light on the fundamental processes of life. Studying plant-microbe interactions and the structural evolution of plant sex chromosomes will provide insights into evolutionary biology and genetics. Investigations into transposable elements and biodiversity will enhance our understanding of genetic diversity and adaptation. Additionally, research to improve agricultural products will contribute to food security and sustainable farming practices. This project represents a significant step forward in genomics and bioinformatics, promising to yield valuable discoveries and innovations.